Synthetic Ion Channels Based on Peptide-Supported Poly(Crown Ethers)

9418362 Hutchison This starter grant award to the University of Oregon will support the research of Professor James E. Hutchison. The theme of the research will be the synthesis of functional ion channel models based on polypeptide-supported poly(crown ethers). The polypeptide serves to align stacks of crown ethers that form the pore. The unique property of this ion-channel model is the ease with which the model's structure can be systematically varied to probe the dependence of ion transport through the channel with the structure of the channel. The channel's inside diameter, the molecular composition of the channel's lining, the length of the channel, and the separation between crown ethers within the polymer will be varied to give structurally well-defined ion channel models. The nature of the ion transport through these ion channels will be tested by imbedding them in planar lipid bilayers and measuring the ion fluxes through them as a function of ions in solution and transmembrane potential. Ion channels selectively mediate ionic transport through cell membranes and play a major role in shaping biological electrical impulses. This research will advance the fundamental understanding of the structure/function relationship.